A vBNS Connection for Princeton University

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for an OC-3 connection to the vBNS. Applications include projects in astrophysics, physics, computer science and languages. Collaborating institutions include the National Center for Supercomputing Applications, Apache Point Observatory, Fermilab National Accelerator Laboratory, Johns Hopkins University, Carnegie-Mellon University, the National Astronomy and Ionosphere Center, Stanford University, University of California-Berkeley and Columbia University.